University of Hawaii Partnership with the NSF I/U CRC for Telecommunications Systems

The University of Hawaii has established a partnership with the Industry/University Cooperative Research Center (I/UCRC) for Telecommunications Circuits and Systems at Arizona State University known as "Connection One". The Hawaii Center for Advanced Communications will provide the capabilities, expertise, and research facilities for doing the research. The vision for the next generation wireless communications technology calls for fully integrated, low cost, expanded broadband and high data rate applications/services, seamless hands-off between heterogeneous networks, full mobility with minimum latency. These constraints make it exceedingly difficult to design affordable wireless systems. Confronting these technology challenges will require breakthroughs and innovative multidisciplinary research contributions across the multi-layer wireless communication network system.